Quest for Exotically Charged Particles (Physics)

This action will provide funds for one faculty and one graduate student to continue a search for exotically charged particles in the highest energy particle collisions available. The experimenters use highly sensitive etchable solid state track detectors for the search of Dirac monopoles and other highly ionizing particles--magnetic charge may also be identified by its acceleration in the magnetic field of a spectrometer drift chamber. The project includes the continuation of two existing searches: one at TRISTAN (KEK Japan) and the other at the D- Zero area of the Tevatron (Fermilab). One new search at LEP (CERN) in collaboration with OPAL is an extension of the others in that it is occurring at the highest e+e- annihilations energy available. Although current theories on grand unification predict magnetic monopole masses well above any accessible at accelerators, such a search should still be carried out as experimental checks whenever better limits can be set at higher accelerator energies.